Molecular and Cellular Biology and Undergraduate Plant Pathology Education

Within the last year, we have altered the undergraduate curriculum in plant pathology to reflect current technological advances in our science. Three courses, Plant Virology, Mycology, and Bacterial Plant Pathogens, now make up the bulk of the undergraduate plant pathology curriculum. All three laboratory courses are targeted for upgrading by this laboratory improvement plan. We are improving laboratories specifically in the areas of video-assisted microscopy and molecular biotechnology. Studies of both molecular evolution and changes in form and function with living materials are now possible. We wish to create a curriculum that can be used as a model for teaching plant pathology at other institutions.